Workshop on Computational Chemistry and Molecular Design

The Workshop on Computational Chemistry and Molecular Design for twelve undergraduate faculty provides hands-on experience with a number of computer programs in computational chemistry and molecular design suitable for use at the undergraduate level. It is intended as an introduction to molecular structure drawing, energy minimization using the molecular mechanics approach, molecular orbital calculations using semiempirical methods, dynamical calculations on small biomolecules, and graphical manipulation of molecular structures and data. The workshop is being held at the Molecular Design Laboratory at California State University, Fullerton and includes a five-day session in June, 1990, with a two-day follow-up session in January 1991 for presentation of interim project results. Participants from throughout the United States work with IBM and Macintosh personal computers, a Sun graphics workstation and DEC and Prime supermini-computers. Participants take back to their home institutions extensive written material and examples for direct implementation, reference or for future development and customization. Curricular implementation of computational chemistry and molecular design projects is described and discussed throughout the workshop. The home institutions of the participants are contributing the costs of travel for the faculty who are participating in the workshop.